da Vinci Engineering Ambassadors in Classrooms

The goals of this project are: to develop modules about engineering concepts and applications for high school students; train fellows and teachers in engineering content and instructional methods; design engineering competition as capstone experience for undergraduate fellows and involve high school teachers and students in these projects; develop a virtual engineering community using WebCT software; and develop an M.S. program in engineering education. This project is being co-funded by the Directorate for Mathematical and Physical Sciences, Office of Multidisciplinary Activities.